CAREER: Storing, Querying and Re-Using Provenance of Computational Tasks

Workflow-based systems have emerged as an alternative to ad-hoc
approaches to data exploration that are widely used in the scientific
community. Workflows can capture computational tasks at various levels
of detail and systematically record the provenance (history) information
necessary for reproducibility, result publication and
sharing. Although the benefits of using scientific workflow systems
are well known, the fact that workflows are hard to create and
maintain has been a major barrier to wider adoption of the technology
in the scientific domain.

The goal of this project is to produce new algorithms and techniques
for exploring and re-using useful knowledge embedded in workflow
specifications and in the provenance of the data they manipulate.
This project addresses key limitations in existing workflow
systems. First, it develops a set of usable tools that enable casual
users (who do not necessarily have programming expertise) to perform
exploratory tasks and solve problems through workflows. These include
intuitive user interfaces to manipulate collections of workflow and to
query workflows by example. Second, it builds a scalable provenance
management infrastructure to support the efficient execution of these
operations.

The research results of this project advance the state of the art and
build fundamental knowledge in storing, querying, and re-using
provenance of computational tasks. This project has the potential to
impact a variety of applications where the creation and maintenance of
workflows is currently a major bottleneck. This includes large
computational science projects and portals. Furthermore, it makes
workflows and workflow technology more accessible to casual users.
Through our interdisciplinary collaborations, this project will have
immediate impact in helping improve the scientific discovery process.
The involvement of graduate and undergraduate students in the project
will provide mentoring opportunities. The PI is committed to
recruiting minority students. The results of this project will be
disseminated as research papers and as freely available tools at the
project website:
http://www.cs.utah.edu/~juliana/projects/NSF-IIS-0746500